Nonlinear-Programming Based Algorithms for Constrained Circuit Placement

This research investigates new, efficient, and highly optimized solutions to large-scale IC placement under tight timing constraints. The focus of this project is to investigate the feasibility of applying recently
developed numerical algorithms, such as the fast multipole method for large-scale particle simulation and the interior-point method for non-linear programming to solving the large-scale constrained circuit
placement problem. Key elements of studies in this project include (i) direct handling of timing and non-overlapping constraints in a mathematical programming formulation; (ii) an hierarchical model of the problem allowing smooth approximations to non-smooth and discrete constraints; (iii) fast multipole expansions to accelerate evaluation of the constraints and their derivatives; (iv) fast numerical solution to KKT-based systems of linear equations used to calculate search directions in the optimization.